Workshop on Global Riemannian Geometry

Abstract

Award: DMS-0813659
Principal Investigator: Frederick Wilhelm

This award provides partial support for US participation in a
Workshop in Global Riemannian Geometry to be held at the
Instituto de Matematicas (Unidad Cuernavaca) Universidad Nacional
Autonoma de Mexico (IMATE-UNAM Cuernavaca) in May 2008. The
meeting will consist of two mini-courses taught by Detlef
Gromoll, Gerard Walschap, and Karsten Grove, plus approximately
eighteen research talks. The conference will be preceded by an
additional mini-course reviewing basic Riemannian geometry to
prepare student participants for the workshop.

The conference aims to disseminate knowledge of recent progress
in Riemannian geometry among junior participants, to promote the
involvement of female and minority researchers in the subject, to
strengthen the presence of Riemannian geometry in Mexico, and to
encourage collaborations between geometric researchers in Mexico,
other countries of Latin America, the United States, Canada, and
Europe. The workshop is receiving support from the Clay
Mathematical Institute, CIMAT, CONACYT, the International
Mathematics Union, and the IMATE-UNAM, as well as NSF. The
conference web site is http://www.matcuer.unam.mx/e/dg/.